The Strategy of Party Competition

In prior research on models of political party competition as it affects policy formulation, researchers have assumed either that parties seek to implement policy as close to a preferred position as possible, or that they adopt policy positions in an attempt to maximize their electoral support. Prior theoretical work by the Principal Investigator suggests that both considerations are relevant for party competition in multiparty democracies. In this investigation the researchers will draw on recent theoretical analyses using game theory and social choice as well as empirical work on party policies to construct a general model of political competition in multiparty democracies, principally in European countries. Coalition politics in such countries has proved very difficult to analyze from a general theoretical perspective. However, careful study of the declared policy positions of parties in a number of these countries (including Germany, Netherlands, Belgium, Italy, Sweden, Denmark) has provided a clearer picture of the process of inter-party negotiation and bargaining and hence of government coalition formation in these countries. This research should provide insights that are of general validity on the process of policy implementation and on the stability of the political process.